Binghamton University Graduate Conference in Algebra and Topology (BUGCAT)

This project is to support a Binghamton University Graduate Conference in Algebra and Topology(BUGCAT) which is a venue for algebra and topology graduate students in all stages of their research to present their work and meet other mathematicians with related research interests. This year it will be a two-day conference on the Binghamton University campus during November 6-7, 2010. Participants will include graduate students at all levels, postdocs, and professors. Approximately 150 participants are expected, with about 100 of them traveling from outside of a one-hour-driving radius from Binghamton. The aim of the conference is to provide a comfortable environment for graduate students from a diversity of backgrounds and schools to share their research. Graduate students will have the priority for talk space. In addition, Moon Duchin from the University of Michigan at Ann Arbor and Richard Foote from the University of Vermont at Burlington will serve as keynote speakers at the conference. Participation from all areas of topology and algebra is encouraged.

The conference strives to strengthen the sense of academic community among mathematics graduate students. Besides giving exposure to the research of advanced graduate students, the conference is an invaluable opportunity for students who have not chosen a research area yet to explore what topics are currently being fruitfully studied. The faculty members who attend serve an essential role in both providing new ideas as well as probing the ideas of graduate students, suggesting ideas for future study, and encouraging students to meet and work with people interested in their areas of research. Graduate students who attend the BUGCAT are better equipped to find academic positions and continue research and collaboration. The conference also promotes diversity in the mathematical sciences, both by encouraging women and minorities to attend and by encouraging participation from a broad range of graduate programs. The conference organizing committee, all graduate students, is remarkably diverse in gender, ethnicity, and background, and hence is well positioned to encourage participation by women and minorities.